Infrastructural Development for Computer Science at Atlanta University

To ensure the vitality of the Nation's technological enterprise, it is necessary to maintain the quality, effectiveness and distribution of the human resource base in science and engineering in general, and in computing technology in particular. Toward the fulfillment of this objective, it is crucial to increase the minority presence in the field by stimulating computer science research and education at minority institutions such as Atlanta University (AU). With the development of a viable infrastructure via the NSF-CISE Program, AU hopes to play an important role in establishing a regional base for such activities and promoting computer science research and education at other HBCUs. Through this project, AU will develop a comprehensive five-year plan for improving the academic program, research and computing facilities with emphasis on the following: (1) Reorganization of research via creation of a limited number of research clusters around the existing nuclei of research interests; (2) Improvement of the existing academic program and curriculum development in advanced courses related to research areas; (3) Enhancement of the existing computing facilities and creation of special-purpose laboratories; (4) Creation of a viable faculty base; and (5) Creation of linkages and partnerships with other major universities, government laboratories and industry.